Student Travel Support to the International Conference on Software Engineering (ICSE) 2007 Doctoral Symposium

Abstract
This award supports student travel to the doctoral consortium associated with the International Conference on Software Engineering to receive feedback from an international group of panelists on their graduate research. The event will build community and help train the next generation of researchers in the field.